Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

Proposal Number: DMS-0215485
PIs: Duursma and Stein

ABSTRACT

The Department of Mathematics at the University of
Illinois at Urbana-Champaign will purchase a cluster
of 16 dual processor PCs connected by gigabit network
connections. The computer equipment will be dedicated
as a powerful distributed computing resource to the
support of research in the mathematical sciences. In
particular, it will support the project Computational
Aspects of Secure Cryptosystems.

Public-key cryptosystems occur in applications such as
digital signatures, message encryption, user authentication,
online payments, and others. The equipment provides an
adequate and up-to-date testing environment for
implementing cryptosystems and for simulating attacks.